Collaborative Research: WebScales-Towards a Large Scale Metasearch Engine

This project is to develop enabling techniques for a large-scale
metasearch engine that aims at covering a much larger portion of the
Web and at the same time retrieving more up-to-date and more useful
documents than existing search engines and metasearch engines. A
metasearch engine is a system that supports unified access to multiple
existing search engines. It is estimated that there are hundreds of
thousands of search engines on the Web (including deep Web). The
proposed metasearch engine (WebScales) will attempt to connect to
as many of these search engines as possible. The focus of the research
is on advancing highly scalable distributed information retrieval
technology and the research issues to be investigated in this project
include (1) how to discover these search engines automatically, (2)
how to incorporate them into the proposed metasearch engine automatically, (3) how to identify potentially useful search engines to use for any given user query submitted to the metasearch engine, and (4) how to achieve high retrieval effectiveness.